The Cauchy Problem for the Einstein Equations

Abstract

Award: DMS-0407732
Principal Investigator: Lars Andersson

This proposal aims to investigate the Cauchy problem for the
Einstein equations. Several aspects will be studied, including
nonlinear stability of cosmological spacetimes, as well as the
nonlinear stability of various versions of the Einstein equations
for spacetimes with one spatial Killing field. Studies of the
asymptotic behavior near spacetime singularities will be carried
out, with particular attention to aspects of the BKL proposal and
asymptotic silence. Here a combination of numerical and
analytical methods will be used. Elliptic gauge formulations for
the Einstein equations will be investigated. These are of
interest for large scale numerical computations, as well as for
the Cauchy problem for rough initial data.

The Einstein equations describe the geometry of spacetime, which
in turn determines the motion of bodies (planets, stars,
galaxies) in space, as well as the dynamics of fields and
particles via their respective field theories. The geometric view
of the universe provided by the Einstein equations has led to
some of the most fundamental and paradoxical features of our
picture of the universe, including the initial spacetime
singularity or Big Bang and black holes. The mathematical study
of spacetimes in extreme conditions such as near the Big Bang
singularity or near the singularity in black holes has led to a
far reaching conjecture called ``Cosmic Censorship'', which
implies that phenomena which violate the intuitive notions of
causality must be hidden (censored) from observers. In this
project, problems related to cosmic censorship are studied using
a combination of computer based and analytical techniques, with a
particular focus on the evolution of geometry from initial
conditions.